United States High-Vertical Resolution Radiosonde Data Analysis for Gravity Waves and Tropopause Processes and Dissemination to the Science Community

Building on a previous NSF award, the PI will acquire U.S. high-resolution radiosonde data for gravity wave analysis. This work will give new results on the information content of 30 m resolution radiosonde observations with a view to gravity wave influences on the mean atmospheric state, the interannual variability of gravity waves in the troposphere and lower stratosphere, and the sources and propagation of gravity waves. As a second focus, the underlying physics that determine the formation and maintenance processes for the tropical and extra-tropical tropopause will be examined. In addition to fulfilling the needs of the research project, the collection of radiosonde data will be made available to the international research community in the database that is maintained by the PI through a web-site on behalf of the World Climate Research Programme. Two graduate students and an undergraduate student will participate in the research.